Semi-empirical Molecular Orbital (MOPAC) Studies of Properties and Reactions of Organic and Inorganic Molecules

Computers and software are emerging that allow quantum mechanical models to be rapidly and inexpensively applied to molecules and systems large enough to be of interest to organic, inorganic and biochemists. By the use of workstations and commercial software, this project will give undergraduate students hands-on exposure to computational models and methods within the framework of the existing laboratory curriculum. This Instrumentation and Laboratory Improvement award from the Chemical Instrumentation Program will help the Department of Chemistry at Wichita State University to acquire computer equipment that will be used to enhance undergraduate laboratory instruction.